POWRE: ANN-Based IC Yield Maximization and Crosstalk Prediction

9973665
Ilumoka

This POWRE Award will integrated circuit mass-production processes are plagued with the problem of low catastrophic (defect-induced) and parametric (variability-induced) yields both of which can be mitigrated through more accurate modeling and tighter control of the IC manufacturing process. As the technology for miniaturization advances, transistors- the basic microelectronic circuit building block-scale down in size form 1.5 um to 0.25um in length. At the soma e time, the tolerance variation problem becomes more serious because disturbances do not scale down proportionally.
The problem of interconnect crosstalk arises from electromagnetic coupling between signal paths on a chip which if left unoptimized may cause logic hazards, signal delay and circuit malfunction. A variety of schemes for modeling crosstalk noise including FDTD and spectral analysis are the subject of intense research; however more generalized cost-effective methods are needed.
A novel ANN-based tool which allows a designer to explore and constructively exploit the interrelation between the performance and parameters of an integrated circuit will be investigated.
A survey of pertinent literature shows that computationally intensive evaluation of highly non-linear analytic functions is today being replaced by more convenient and cost effective mathematical constructs such as artificial neural network (ANN's), look-up tables and response surface approximations.
Research will be carried out collaboratively over a 12-month period at three sites. University of Hartford (the proposer's home institution), Georgia Tech (ECE Intelligent Semiconductor Manufacturing Group ) and Imperial College, London (Circuits and Neurosystems Design Groups).
***